Composition Operators (Mathematics)

Dr. MacCluer's research lies at the interface of operator theory and function theory. These problems involve aspects of the study of composition operators on analytic function spaces, and include a continuation of joint work with Carl Cowen (Purdue University) on the question of identifying the spectrum of a composition operator acting on a Hilbert space of analytic functions on the unit ball BN of CN, N > 1. A study of the phenomena of auotmorphism invariance of such a Hilbert space, and its connection with composition operator questions will be pursued. Additionally, there is continuing joint work with Thomas Kriete (University of Virginia) on a study of composition operators on large weighted Bergman spaces on the disc, and a continuation of recent work of MacCluer and others on basic properties of composition operators on spaces of analytic functions on BN, N > 1. Interactive activities at the host institution include: teaching a one semester graduate level course based on a book being written by Dr. MacCluer and Carl Cowen at Purdue-the host institution-on composition operators. Additionally, guest lectures in seminars at Purdue and at the Wabash Modern Analysis Seminar will be given. Dr. MacCluer will also seek out opportunities for interaction with both undergraduate and graduate students in a variety of ways, both informal and structured. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.